Conference on "Finding Food: Neuroethological Aspects of Foraging", to be held October 6-8, 1995, Amherst, MA

Non-Technical Summary IBN 95-13884 PI: K. Fite Finding Food: Neuroethological Aspects of Foraging This is a proposal for partial support for a conference that integrates functional (adaptive ecological) and mechanistic approaches to the study of how animals forage. That is, how do animals locate, capture and identify sources of essential nutrition. The unique feature of this conference is that it brings together scientist who seek to answer this fundamental question from the perspectives of 1) sensory mechanisms, 2) neural processes, 3) cognitive and learning processes, and 4) behavioral ecology. This conference will be an exemplary forum that will provide young as well as experienced investigators a view of how contemporary science attacks an age-old question in Animal Behavior, how do organisms find the sources of ingested energy necessary to sustain life.